Neutron Interferometry and Neutron Schrodinger Wave Optics

The neutron interferometer is a device that uses the quantum mechanical
(QM) wave-like properties of free neutrons to measure certain
properties of nature very precisely. It functions much like an optical
interferometer, except that it detects the interference of neutron
"waves" rather than light waves. A slow neutron (speed less than about
2000 m/s) has an associated QM wavelength comparable in size to the
spacing of atoms in a solid, so it interacts with matter coherently,
i.e. like a wave rather than a particle.

When a slow neutron enters the interferometer, its QM wave is
diffracted in a perfect silicon crystal and splits into two sub-waves,
each taking a different path. These two sub-waves then strike a second
silicon crystal and are diffracted again, into four sub-waves, all
still associated with the original single neutron. Two of these four
sub-waves meet again in a third silicon crystal and can interfere with
each other. The degree of interference determines the probability of
detecting the neutron in a neutron detector placed behind the
interferometer. We can place a piece of matter, a magnetic or electric
field, or even a gravitational field inside the interferometer to shift
the phase of one sub-wave relative to another and change this
interference. By noting the resulting change in the neutron detection
rate we precisely measure the amount of phase shift. This gives
important and often unique information about the strength and nature of
the neutron's interaction in the material or field.

In one experiment, we single out the neutron phase shift caused by its
interactions with electrons in a silicon crystal. Overall the neutron
is electrically neutral, but it does feel a force from charged
particles such as electrons because of its magnetic moment, and because
it contains charged quarks. Our measurement will lead to a much better
understanding of the internal charge distribution in the neutron. In
another experiment, we precisely measure the phase shift due to the
neutron's interaction with He-3, a rare light isotope of helium, and
how it changes when the neutron's spin direction is made the same or
opposite to the spin direction of the He-3 nuclei. This will provide
important details about the nature of the force between neutrons and
protons inside atomic nuclei. A third experiment measures the neutron's
phase shift in the Earth's gravitational field using a special neutron
interferometer that floats in a zinc bromide solution. We will try to
resolve a long-standing discrepancy between past neutron experiments of
this type and Einstein's Weak Equivalence Principle, which states that
a particle's gravitational and inertial masses are equal.